AGS-PRF: Quantifying Agricultural Volatile Organic Compound Emissions with Airborne Measurements

This project will use aircraft measurements to study regional emissions of chemical compounds from agricultural sources that can lead to air pollution. Despite the fact that agricultural land covers approximately half of the U.S., emissions of these biogenic volatile organic compounds (BVOCs) from croplands remain poorly characterized in emission inventories and chemical transport models. The project directly addresses this shortcoming and will improve understanding of agricultural contributions to atmospheric chemistry and air quality relevant to public health. The fellowship provides for advanced scientific training and career development of a postdoctoral research scientist.

Quantification of agricultural BVOC emissions and their chemical impacts on ozone and secondary organic aerosol formation will be made using state-of-the-art airborne observations and model-relevant data synthesis. A high-resolution proton-transfer-reaction long time-of-flight mass spectrometer will be deployed during the NASA FarmFlux aircraft campaign to produce a dataset of speciated volatile organic compounds (VOCs) mixing ratios and ecosystem-scale emission fluxes over major U.S. agricultural regions. Improved emission parameterizations linking BVOC emissions to crop type, phenology, and environmental conditions will be developed. By applying airborne eddy covariance techniques, agricultural BVOC fluxes will be quantified at spatial scales relevant to regional atmospheric modeling. The effort is expected to facilitate improvement in air quality models.